CyberCorps Scholarship for Service: Building Research-minded Cyber Leaders

This project will establish a new CyberCorps® Scholarship for Service (SFS) program at Brigham Young University (BYU). Over the next five years, this project will support undergraduate and graduate students studying Cybersecurity. These future cyber leaders will enter the government workforce with a strong grounding in cybersecurity's technical and human dimensions. SFS undergraduate and graduate students will have opportunities to participate in faculty-mentored research, BYU’s Security Operations Center (SOC), a new CyberClinic, cybersecurity and networking clubs, competitions, career fairs, government internships, and outreach efforts. In addition, this project will enable strategic enhancements at BYU designed to increase the number of cybersecurity students, build a strong community among SFS students, and promote student research. This will, in turn, provide the government with a set of capable, well-connected graduates ready to solve the cybersecurity challenges of today and the future.

The BYU SFS program is designed to motivate students to become strong cyber leaders in government, raise the visibility of cybersecurity programs and opportunities at BYU, and further develop partnerships with government agencies. The project will support an SFS student research symposium, a government cybersecurity career event tied to BYU’s STEM Fair, and new outreach efforts that will better integrate efforts across campus. A new Cybersecurity SFS Seminar will help build a community among SFS students and faculty and bring in experts from other universities and government agencies. Students participating in research will work with faculty studying high-priority areas, including AI and cybersecurity, human aspects of cybersecurity, embedded systems security, network security, and cybersecurity education. Graduate SFS students will complete a rigorous thesis centered around a cybersecurity topic, helping prepare them for cutting-edge research within government institutions.

This project is supported by the CyberCorps® Scholarship for Service (SFS) program, which funds proposals establishing or continuing scholarship programs in cybersecurity and aligns with the U.S. National Cyber Strategy to develop a superior cybersecurity workforce. Following graduation, scholarship recipients are required to work in cybersecurity for a federal, state, local, or tribal Government organization for the same duration as their scholarship support.